FT NMR for Improved Undergraduate Instruction and Research

Davison College is purchasing a 300 MHz Fourier transform nuclear magnetic resonance (FT-NMR) spectrometer. Students are using the instrument in introductory organic chemistry to identify unknown compounds. Advanced students build upon their NMR background from organic chemistry to explore theoretical relationships, acquire and interpret the NMR spectra of more